Conference Support for Women in Cognitive Science: 2008-2009

Three workshops are designed for women in cogntive science, especially those women in the early stages of their academic career. The workshops focus on the grant writing process and will take place at the Psychonomic Society, the Cognitive Science Society, and the Association for Psychological Science. The workshops will take the form of a public forum with invited speaker-panelists to initiate discussion about best practices for the professional advancement of women in cognitive science at the individual and institutional level. By partnering with these established societies, the workshops will maximize the outreach potential to a group that continues to be underrepresented in senior academic positions in the cognitive sciences.